Constraining the Magmatic Budget of the EPR at 9-N Using Broadband Marine MT

This project will conduct a magnetotelluric survey at the Ridge 2000 integrated studies site on the East Pacific Rise near 9 degrees north. Key questions to be addressed are: What is the distribution, vertical extent and volume fraction of melt present in the mid to lower crust? To what extent does hydrothermal circulation play a role in heat removal from the crust? To what extent is melt accumulated at the base of the crust? What, if any, connections exist between the crustal melt accumulations and the region of decompression melting deeper in the mantle?